Galactic and Extragalactic Research with Schmidt Telescopes

This grant supports research by Drs. Peter Pesch and Nicholas Sanduleak based on observations made with Case Western Reserve University's Burrell Schmidt telescope, located on Kitt Peak in Arizona, and with the Curtis Schmidt, located at Cerro Tololo Inter-American Observatory. The principal survey now being carried out is a very fruitful search for faint blue and/or emission line galaxies, quasi-stellar objects with and without emission features, probable blue stars, main-sequence late B and A stars, Population II stars of types A and F, F and G subdwarfs, and faint carbon and late M type stars. Exploratory observations with a charge coupled device on the Burrell Schmidt are planned to determine what direct and spectroscopic observational programs would be worthwhile to undertake. Investigations of galactic structure and the distribution of extragalactic objects require surveys to identify the objects which will be studied in detail. Surveys over large parts of the sky are especially important for studies of the population distribution in our galaxy to determine the different characteristics towards the nucleus, halo and anticenter. The surveys conducted by these researchers at Case Western are a vital first step to detailed follow-on investigations.